Parallel Automated Reasoning and Clause-Graph Analysis

With the increased use of automated reasoning systems and the proliferation of parallel machines, the need for research in parallel automated reasoning was never more evident. Coarse grain parallel theorem provers have been developed which demonstrate linear speed-up for small to medium scale problems; however, fine grain provers for very large scale problems have yet to be developed. In this work a SIMD parallel automated reasoning system will be designed based upon the clause graph (or connection graph) model. This system will be implemented on the Connection Machine model CM-2 and will be applied to a number of problems in group theory and combinatorial geometry. In addition, parallel algorithms will be developed for computing and analyzing the spectra of clause graphs.